Mathematical Sciences: "Two Annual Geometry Festivals"

The investigators propose to continue organizing and holding the annual Geometry Festival to be held at various locations in the east coast on a rotating basis. The Geometry Festival has become an annual event for the east coast differential geometers for the last decade; the topics cover a number of areas from differential geometry including classical differential geometry and geometric partial differential equations. The proposed conferences will bring together a number of established researchers in geometry with junior investigators and students; it is hoped that students can quickly gain an appreciation of the scope of current research and learn of open problems in the area.